Support for a Workshop on Nonlinear Dynamics in Galaxies and Exo-Solar Planetary Systems, February 15-17, 2001 in Gainesville, FL

AST-0087666
Henry Kandrup

This award will provide partial support for the travel expenses of young post doctoral researchers and graduate students who attend the Workshop on Non-linear Dynamics in Galaxies and Exo-Solar Planets at the University of Florida, Gainesville on 15-17 February, 2001. This support will allow students who would otherwise be unable to attend this workshop to participate in the scientific interchange which is important for the development of both their educational development and the development of this new and expanding field of numerical modeling.
Funding for this project was provided by the NSF program for Extragalactic Astronomy & Cosmology (AST/EXC).

***